SGER: Topological Issues of Intersection Curves

ABSTRACT
0231511
Nicholas M. Pattrikalakis
Mass Inst. of Tech

We propose to study the topology of the union of a finite collection of boxes that covers an
intersection curve in the plane and in 3D space. The representation of curves that are the
result of surface intersections is nearly never exact, and thus certain approximations schemes are
employed. The result is often a piecewise linear approximation cl, which lies within a certain
neighborhood N, of the actual curve c. Much of the research in this area has been focused on
the approximation cl of c and how c and cl are/are not similar. We propose to develop suficient
conditions on the collection of the boxes and the intersection curve, so that the resulting union
of the collection is a topological manifold homotopically equivalent to the given curve. In the
case where the curve has no self-intersections, this collection can serve as another means of
representing the curve, and thus this new representation can be used in a variety of engineering
applications. We believe this to be an innovative exploratory study appropriate for SGER
funding.